REU: Simulation of Summer Baroclinic Circulation in the Gulf Maine

It is proposed to conduct a series of three-dimensional numerical simulations of the baroclinic circulation in the Gulf of Maine during summertime. The effects of wind stress, freshwater runoff and stratification on the circulation will be investigated, first separately, then together.